Real-Life, Real-Time Problem-Solving Laboratories for Undergraduate Sciences

9351180 Friedman The Howard Community College Science Department will upgrade its computer-based experimental laboratory to promote real- life, real-time problem-solving in its science classes. While the specifics will vary in each discipline, the new laboratory equipment will allow HCC: 1. To acquire probeware that will allow the collection and manipulation of real-world data for problem-solving and conceptual model building exercises; 2. To incorporate more real-world multimedia instruction into computer-based simulations, experiments, and problems; 3. To utilize real-time data analysis and manipulation tools to improve student facility with and comprehension of laboratory observations and information. The equipment will support a flexible laboratory operation that will serve approximately 2,500 annually. The laboratory will also be used for professional development for K-12 teachers as well as a showcase for other area colleges. ***